HDCCSR: Software Self-Awareness Using Dynamic Analysis and Markov Models

Long-lived, autonomous software systems require ongoing self-
assessment, which implies a comparison between expected and actual
stimuli, as a prerequisite to self-diagnosis and repair.
This project addresses the use of dynamic analysis and machine
learning techniques for behavior classification. The proposed
work will
- address fundamental research and education issues in dependable
software-based computing systems by exploring how machine
learning techniques can most effectively be applied to improve the
self-assessment process;
- develop research products in the form of prototype tools or
methodologies, applying Markov models and cluster analysis to
the assessment of program behavior data;
- provide dependability attributes that are suitable for measuring
the impact of the research products, such as
the extent to which a set of Markov models successfully
describes the behavior of a software system;
- provide empirical evaluation/validation of the
research products together with associated test data
to validate the effectiveness of the approach
The proposed research will provide empirical data on the use of
Markov models to encode behavioral models, and methodologies
and infrastructure for use in performing further experimentation.
The resulting techniques for provisioning software with behavior
models to aid in self-awareness will promote research
on development of real-time systems.